Development of a Multi-Spectral Fluid/Solid Micro-Motion Measurement System

We propose the development of a high-speed imaging system capable of
measuring the motion of both solid surfaces and fluid elements inside a
micromachined system. The system is unique in that it will be capable of
operating both in the near infrared - a capability that allows it to see
through silicon substrates and into the inner chambers of complex
micromachined devices. This will enable, for the first time, high-speed
measurements of the kinematics and dynamics of micromachined devices and the
motion of fluids inside complex micromachined systems. Applications of this
instrument will include measurement of micro device operation (valves,
pumps, accelerometers, gyroscopes, etc), direct measurement of fluid
behavior inside micro-geometries where visible imaging is not possible due
to intervening silicon surfaces.

The instrument development includes the assembly of custom hardware for
infrared microscopy and illumination with lasers operating in conjunction
with nonlinear Opto-Parametric Oscillators (OPOs). These create two very
short laser pulses (4 ns each). The resultant image is captured by a pair
of near-IR focal plane arrays and downloaded to a Digital Signal Processing
Board (DSP) for real-time processing and display on a host PC. Custom
signal processing software will enable three modes of operation: solid
motion measurement, solid deformation measurement and fluid motion
measurement.